Equitable Pathways to Artificial Intelligence

Artificial intelligence (AI) has transformed the way data is analyzed to produce meaningful information and has created an unprecedented demand for trained AI technicians. The goal of this project is to develop educational and career pathways in AI through the creation of an online AI certificate program. The certificate program will provide stackable credentials and credit for prior learning, be guided by an industry advisory board, and implement national recommendations for AI education. Students will be taught using real-world projects and project-based learning. The certificate program will serve high school students, incumbent workers, and second-degree seekers and will feature enrichment activities such as industry workshops, internships, and career panels. The resulting certificate program will be the first AI certificate in the CUNY system that will prepare students to pursue careers in industry as entry-level AI technicians.

Beyond its immediate objectives, the program will seek to cultivate a talent pipeline, addressing the shortage of AI technicians, diversifying the talent pool, and establishing a national model for preparing diverse students for successful AI careers. The instructional materials developed will become part of the college’s permanent course offerings. The project team will use both quantitative and qualitative measures to assess the project’s effectiveness and will use these measures to adjust the program as needed. This project will serve as a model for other academic institutions interested in developing a comprehensive program aimed to help address the shortage of well-qualified and skilled AI technicians. This project is funded by the Advanced Technological Education program that focuses on the education of technicians for the advanced-technology fields that drive the nation's economy.